CAREER: Cohomological Methods in Algebraic Geometry and Number Theory

The investigator studies the use of p-adic analytic techniques in
several aspects of arithmetic geometry. One focus is on the p-adic
cohomology of algebraic varieties over finite fields, including
theoretical questions like the stability of coefficient objects under
cohomological operations, and computational problems like the
determination of zeta functions of specific curves and surfaces. Another
focus is the classification of Galois representations over local fields
(p-adic Hodge theory); goals of this include gaining insight into
proposed Langlands-style correspondences between Galois representations
and representations of p-adic Lie groups, as well as unifying the
treatment of Hodge theory in the complex and p-adic settings. These foci
share common (and recently developed) technical elements from the theory
of p-adic differential equations, which again have strong
complex-analytic analogues.

The use of p-adic analytic methods in arithmetic geometry, as in the
investigator's work, has great significance within mathematics; for
instance, it is currently being used to pursue generalizations of the
techniques underlying the proof of Fermat's Last Theorem. But it also
has surprising practical significance due to the appearance of systems
of polynomial equations over finite fields (such as the integers modulo
a prime number) in combinatorics and computer science. For instance,
elliptic curve-based cryptography has been adopted by NIST as a standard
for secure communications thanks to its balance of efficiency versus
security; p-adic methods can be used to select curves suitable for this
construction. Geometry over finite fields also appears in the
construction of many error-correcting codes; p-adic methods can be
deployed to search for codes which correct transmission errors without
carrying too much overhead. So far these applications rely on proven
statements in the theory of p-adic cohomology, but the theory is
somewhat unfinished and it seems likely that future applications will
rely for their provable correctness on statements not yet proved. It is
thus important to pursue theoretical and practical aspects in parallel.